CAREER: Infrastructure Development of Electric Power Grids

This project evaluates new and old electrification systems to understand outages and rising costs of maintaining and producing electricity. This project seeks to 1) understand how communities navigate changing service conditions, 2) establish theoretical and empirical knowledge on the normalization of infrastructure services, and 3) examine how assumptions in energy studies affect technological choices. Public engagement via forums, books, websites, visual arts, and film will disseminate research findings to a wide audience.

This project seeks to understand the evolution and differences between small and large grid systems. It focuses on how everyday experiences of energy networks are instrumental in infrastructure development. It will explore responses to electrical disruptions during times of network expansion and generate new insights for energy infrastructure studies. The project also provides pedagogical materials for understanding how large-scale technological systems change over time.